Pulse of the Planet Project

0000594
METZNER

Jim Metzner Productions is developing a means to broaden and deepen the reach and impact of the "Pulse of the Planet," the short-format science and nature radio series that is currently carried on approximately 300 stations. The plans are to develop and broadcast a Spanish-language version of the series and to continue production and increase the carriage of the short-format programs. In addition to broadcast radio, the series also will be available in RealAudio on the National Geographic Web site, and the project has its own Web site.